CISE Research Instrumentation for Microelectronics

Computational and integrated circuit test and measurement equipment dedicated to support research in VLSI implementation of digitally controlled analog signal processors and device and circuit modeling will be procured. Individual projects supported include: * Partial differential equation solvers. * Networks for solution of multidimensional optimization problems. * Cellular neural network image processing systems. * Semiconductor device simulation. * Characterization of parasitic integrated circuit elements.